Solid State Geochemistry: High-Resolution Transmission Electron Microscopy of Minerals

9706359 Buseck This research will utilize high-resolution transmission electron microscopy and complementary techniques to recover information that resides in the structural distortions, non-stoichiometry, interfaces, precipitates, gradational structures, and other "defects" in minerals. Topics to be studied include: (1) the unusual carbon-rich minerals associated with the reducing environments of Shunga, Russia, (2) interstratified vermiculite-smectite formed during chlorite alteration, (3) non-cubic ?pyrite, (4) maghemitization in ocean-floor basalts, (5) Lorentz microscopy, and (6) chemical imaging at the unit cell scale. The unique combination of an outstanding facility with cooperating scientists in cognate disciplines will help the pursuit of important mineralogical developments and applications of high-resolution.